Optical Electronics Curricular Improvement

This project adds optical systems and optical communication to the electro-optics curriculum laboratory in the Electronic Engineering Technology program at Portland Community College to meet the demands of a growing electro-optics industry. The equipment consists of low-power helium neon and diode lasers, optical work benches with precision translation stages, photometers, monochrometers and related optics, fiber optics and mounting hardware for twelve experimental stations and one optical time domain reflectometer. This addition allows students to acquire many of the skills an electronics technician needs to function effectively in a modern electro- optic environment that uses lasers and fiber optics. The improved curriculum is designed so that through the measurement of laser and fiber characteristics, the student verifies fundamental optical principles and obtains the practical optical skills required.